Chaos and Fractal Teaching

The purpose of this project is to develop teaching materials that will allow high school teachers to introduce various concepts from dynamical systems theory and fractal geometry into the high school curriculum. The project will include the development of approximately fifteen modules, each dealing with a single topic from fractal geometry or dynamical systems. Some modules will be able to be used independently; some will be developed to be used in a sequence of successive class sessions. Each module will contain background materials, preliminary student worksheets, a short video, and suggested followup activities. Specific materials to be developed include videotapes, software, Hypercard stacks, worksheets, and teacher guides. The aim is to help teachers show students the vitality of modern mathematics with material that complements and enhances the standard high school curriculum. Also planned is a two-week Summer Institute to train teachers to bring these ideas from modern mathematics into their classrooms.